NATO Advanced Scientific Workshop on the "Use of Biomarkers in Assessing Health and Environmental Impacts of Chemical Pollutants" to be held in Luso, Portugal, June 1-5, 1992

A NATO International Scientific Exchange Programme Advanced Research Workshop on the Use of Biomarkers in Assessing Health and Environmental Impacts will be held in Portugal in June 1992. The objective of the workshop is to develop a conceptual framework for the use of biomarkers in assessment of human and environmental health; to review the current state of knowledge of biomarkers; and to formulate the research needs for implementation and interpretation of biological monitoring programs to define community health needs. This proposal is to provide funds to permit more scientists to participate in the Workshop.